Conference on Asymptotic and Effective Results in Complex Geometry

DMS 0326849

PI: S Zelditch

Johns Hopkins University

Conference on Asymptotic and Effective Results in Complex Geometry

Abstract

Abstract:

This conference is devoted to asymptotic and effective results in
complex geometry. Many important problems in complex and algebraic
geometry concern the construction of holomorphic objects such as
holomorphic sections of line bundles or maps between spaces. It often
happens that the construction problem simplifies as the degree of the
line bundles or maps increases. A classical example is the Kodaira
embedding theorem, which says that there are enough sections of a high
power of a positive line bundle to embed a Kahler manifold into
projective space. Asymptotic results in general concern the properties
of maps or sections of very high degree, where constructions often
simplify. Effective results ask for the smallest power or degree where
a desired effect takes place, e.g. the smallest power of a line bundle
so that sections embed. Many such results will be surveyed in our
conference, with techniques ranging from partial differential equations
to geometric and algebraic methods.

Our conference consists of seven days of lectures, with six to eight
lectures a day. There will be lectures surveying past results and others which present new results. The topics include complexity of
zero-finding algorithms, moduli spaces, holomorphic maps, ground states
of superconductors, and the vacuum selection problem in string theory.
The lectures will expose the field to graduate students, postdoctoral
researchers and junior faculty members, as well as to senior
mathematicians. Two graduate students and at least five postdocs are
giving lectures. A significant portion of our funding will go towards
paying travel expenses of graduate students, young mathematicians and
members of under-represented groups.